Investigation of Possible Boundary Currents Adjacent to the Windward Side of the Hawaiian Islands

This project will investigate the structure of the ocean north of Hawaii using expendable AXBT's dropped from a series of flights. recent theory and analysis suggests that the Hawaiian Island ridge system rectifies incoming Rossby waves into a current system with quasi-persistent offshore structure. This study will determine the spatial sturucture, and with repeated flights, will describe some aspects of the temporal variability.